REU SITE: Parallel Processing: Design, Analysis and Implementation of Parallel Algorithms

This project will support 6 students to attend an 8 week summer research program followed by academic year research at the student's home institution. The first 3 weeks of the summer will include instruction in parallel languages, data structures for parallel programming, and exposure to parallel algorithms. In the remaining 5 weeks students are separated into teams of two members each to do research on problems such as parallel combinatorial algorithms and parallel composite graph coloring.